High-Temperature Material Fabrication Using High Energy Electron Beams

9360488 Goodman The use of high energy (1-5 MeV), high power (250 kW-1 MW) electron beams allows the low cost fabrication of unique high temperature materials which are not economically manufactured using conventional fabrication methods. Materials which can fabricated using this process include nickel-based super alloys with graded thermal and mechanical properties and ceramic-reinforced TixAl and NixAl metal-matrix composited. The electron beam fabrication process melts and consolidates pure or alloy powders, woven or particulate reinforcement material and metal foils to produce net shape structures. Science Research Laboratory has developed a new generation of pulsed linear induction accelerators (LIA) which allow reliable, cost efficient production of high average power electron beams with the necessary parameters for high energy electron beam (HEEB) material fabrication. Unique features of these accelerators include high repetition rate (>5000pps) all-solid-state pulsed power drivers which make these accelerators scalable to megawatt power levels at a capital cost of the accelerator is approximately $2/Watt. *** ! ! ! F ( Times New Roman Symbol & Arial ` ` ` ` ` " h : : / abstract Maceo Hart Maceo Hart